Teachers As Agents Of Systemic Change (TAASC)

9634075 Price The Center for Education and Equity in Mathematics, Science, and Technology at California State Polytechnic University is working with four multicultural school districts in eastern Los Angeles County to implement systemic change in the secondary mathematics programs. Teachers in cooperation with their administrators are effecting change in mathematics curriculum, instruction, and assessment in keeping with the NCTM Standards. Workshops provide teachers with additional content knowledge and renewal of pedagogical skills consonant with the selected instructional materials and teachers are forming networks and partnerships among themselves, administrators, professional societies, and parents.